Presidential Young Investigator (PYI) Award

The PI's work will be divided into two parts, identifying new "gravitational lens" systems at extragalactic distances and observations of cool stars with coronae. The PI will be conducting observations of gravitational lens candidates first identified in the MIT-Green Bank radio survey. In collaboration with J. Lehar, D. Roberts, and B. Burke, she has just completed monitoring the gravitational lens 0957+561. These measurements have resulted in a lens time delay, which can be used to put limits on the cosmological Hubble's constant. Observations are commencing on the Einstein ring system MG1131+0456, aimed at characterizing its radio light curve in order to determine whether time delay measurements can be made with this object as well. The PI will also conduct observations on active cool main sequence ("dMe") stars to determine whether they have low-mass companions. These observations will be made with a variety of collaborators in the U.S. and France. Trial observations to date have succeeded in detecting the presence of "coronae" around such active stars as YZ CMi, EV Lac, and AD Leo. Further observations of these stars will be made to determine the extents of these coronae around the stars exciting them.